Subtle Tests of the Standard Model - Indirect Probes for New Physics

Theoretical research in elementary particle physics will focus on studies of the decays of particles containing heavy quarks such as the beauty quark. Investigations of these decays are a very promising way to try to learn more about the weak forces, the interplay between the weak and the strong forces, and CP nonconservation. The latter phenomenon, which is a violation of basic symmetries between particles and antiparticles, has so far been seen in only one place, and is not understood at all. Additional information on this phenomenon would be very enlightening.